Japan JSPS Program: Non-Perturbative Approaches to the Many-Body Problem

9602499 Lidsky This award supports a 12 month Japan Society for the Promotion of Science (JSPS) Postdoctoral Fellowship for Dr. David Lidsky at the Institute of Solid State Physics at the University of Tokyo, Tokyo, Japan. Dr. Lidsky will work with Dr. Mahito Okomoto, Professor of Physics, on a research project entitled, "Non-Perturbative Approaches to the Many- Body Problem". The proposed research will elucidate the quantum mechanic origins of yet unexplained states of condensed matter, specifically high-temperature superconductors. It will analyze the Coulomb interactions between electrons and the explicit effect of the scattering rate of microscopic charged particles and temperature dependence on materials, both of which significantly influence the resistivity and effectiveness of superconductive activity. The traditional theoretical approach to studying the effect of electron- electron interactions has been perturbation theory, in which one starts with non-interacting theory and treats the interaction as a correction. One of the main goals of the proposed research is to develop non-perturbative techniques in which one does not start from a free theory, but rather emphasizes electron-electron interactions and their effect at the outset on the experiment. ***